Investigation of the Kinetics and Mechanism of Metal Passivation (PRC Supplement

This is an in-depth study of the passivation of zinc electrodes. It is probably the most detailed study of passivation in a single system ever performed. It will test finer points of the theory, which may then be applied to other systems. Passivation is a serious problem in batteries, fuel cells, and other electrical devices; on the other hand, passivation also affords protection against corrosion in structural metals.